A Unified Approach to Zeros in Robotics and Aircraft

In this research project, the module-theoretic approach applied to multi-variable poles and zeros is used in the context of robotics and aircraft control applications. The major emphasis is on developing a new unified approach to intertwine module -theoretic research and modern control system theory. It combines work in the area of commutative algebra with applications in feedback theory. Utilizing this method avoids the necessity of imposing restrictive assumptions on system minimality, causality and squareness. An intense software study of specific examples relevant to the methodology is included in the research project.*** //